Development of an Expert System/Quality Control Model for the Enhancement of American Industries

This is a Research Opportunities for Women-Research Planning Grant. The purpose of the research is to perform a feasibility study on the applicability of the existing expert system to the industrial user. The ease of use, and ability of the system to recognize quality perturbations in industrial settings is to be determined. If the results of the feasibility study indicate that sufficient potential exists for use of the expert system in selected industries, the model is to be enhanced and refined to incorporate industrial data so that output quality may be significantly improved so that American industries can compete more effectively in a world market.